Engineering REU Site Proposal: Undergraduate Research in Mechanical Engineering

A program of summer research in mechanical engineering for science and engineering undergraduates enrolled in an REU site. Applicants for the program will be asked to submit transcripts, letters of recommendation and an essay. Participants will be selected by a panel of faculty members. The program will start with an orientation program in which research projects and facilities are described. Participants will be asked to select a project on which to work from a group of twenty ongoing research programs in mechanical engineering. A faculty supervisor will monitor the progress of each student. Students will be given increasing responsibilities as their skills develop. Students will be asked to attend biweekly seminars which will explore current research areas, in Mechanical Engineering. The students will live on campus in dormitories close to one another so that they may share their research experiences. An informal social program will also be organized. At the end of the summer, students will be asked to prepare oral and written reports on their research activities. We will attempt to find on-campus research jobs for students who do well in the program. Areas of faculty research and expertise include heat transfer and thermodynamics, power and propulsion, industrial engineering, design, environmental engineering, and Microcontamination.